Chapman Conference on Solar Wind Sources of Magnetospheric ULF Waves

This award provides partial support for an American Geophysical Union run Chapman Conference entitled "Solar Wind Sources of Magnetospheric ULF (Ultra Low Frequency) Waves". The meeting will be held in Williamsburg Virginia in September, 1992.